ENGINEERING RESEARCH EQUIPMENT: Sample Oscilloscope for HighSpeed Device and Integrated Circuit Research

9411609 Asbeck A sampling oscilloscope will be purchased which will be dedicated to support research in the characterization of high speed devices and integrated circuits, supporting activities of at least four faculty members. It will enable research efforts to explore the application of high speed semiconductor technologies to commercially important systems such as high speed fiber links and wireless communications. Specific projects that will benefit include: development of high speed optical modulators and driver amplifiers; development of ultrahigh speed Read-Only-Memories for frequency synthesis; measurement of high frequency characteristics of HBTs, including large signal characteristics and storage time; development of high speed, low power circuits based on resonant-tunnel-diode/heterostructure transistor combinations; and development of novel microwave mixer circuits. ***